Science, Technology, Engineering, Math (STEM) Scholars Program

Engineering - 99

The goal of this project is to increase the numbers of successful STEM majors. The project is identifying and recruiting potential STEM scholars from local high schools and engaging them in experiences designed to improve their motivation and persistence. Activities include researching STEM career opportunities, participating in workplace learning through job shadowing and internships, and fostering relationships between the STEM scholars and high technology professionals, future employers and transfer institutions.

The program is providing comprehensive support services for the scholars including professional tutoring, career counseling and assistance in securing employment or academic placement. They are utilizing existing career development services offered by the institution and implementing new advising strategies focused on the 2+2 articulation agreements in STEM disciplines.